Mathematical Sciences: A Networked Computer Facility for Research in Computational Statistics and Graphics Methods for Data Analysis-II

This project is an equipment grant under the activity Grants For Scientific Computing Research Equipment For The Mathematical Sciences program. The project involves the purchase of special purpose equipment dedicated to the support of research in the mathematical sciences. In general, this equipment is required jointly by several research projects and would be difficult to justify on one project alone. This research equipment support from the National Science Foundation is coupled with discounts and contributions of equipment from manufacturers and significant cost-sharing from the submitting institution. This project provides a good example of university, industrial, and government cooperation in the support of basic research in the mathematical sciences. This equipment will be used for several research projects, including in particular: comparison of small-sample performance of significance tests from a new inferential viewpoint; methods for symbolic calculations with tensors and set partitions to obtain improved approximations to distributions; combining empirical modeling and asymptotic theory to make conditional simulation usable for evaluating conditional significance, estimating covariance structures of random fields, and other statistical projects.